Adolescent Political Attitude Development and Engagement: A Social Cognitive Perspective

The primary objective of the project is to develop a competitive research proposal on "Adolescent Political Attitude Development and Engagement: A Social Cognitive Perspective". Support of this project will assist a well trained, Black psychologist to improve her research capability and to complete the planning and development of a regular research proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.